Quantitative Combinatorial Design of Displacers and Affinity Ligands

This research project is to employ high throughput screening techniques, combinatorial chemistry, and combinatorial biocatalysis to identify novel displacers and affinity ligands for the purification of biomolecules. This project is also to bring together synergistically recent advances by the Principal
Investigators (PIs) in these fields. The intent is to produce a new paradigm for the discovery of powerful new bioseparating agents.